Purchase of a Parallel Computing Facility

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Iowa State University in the purchase of a parallel computational facility using IBM SP1. This equipment will enhance research in a number of areas including the following: the development and application of parallel computational software in electronic structure theory, surface dynamics and statistical mechanics, and scattering theory. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the- art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing.